I/UCRC Supplement funding to ECD-8116103 for Support of Evaluation Function

9314073 Hiltner This award provides funding for the first year of a three-year continuing award for support of an evaluator at Case Western Reserve University's Industry/University Cooperative Research Center for Applied Polymer Research. The Center continues to meet the renewal criteria requirements of the I/UCRC Program. The evaluator of the Center duties consist of writing a Historical Profile, taking Surveys of industrial members and faculty, advising the Director of the Center and IAB members, attending annual evaluator meetings, and conducting exit interviews with departing companies. The Program Manager recommends Case Western Reserve University be awarded $8,000 for the first year of a three-year continuing award to support the evaluator at the Center.